SCREMS: Scientific Computing Environments for Mathematical Sciences

A group of researchers in the Department of Mathematics at Penn State
will purchase a symmetrical multiprocessor (SMP) cluster, and a
visualization server. The new equipment will be used to support
various ongoing mathematical research projects including number
theory, numerical solution of partial differential equations,
mathematical modeling and numerical simulations for hydrogen fuel
cells, modeling in fluid dynamics and material sciences, mathematical
modeling and numerical simulations in biological sciences, analysis
and implementation of new cutting-edge numerical techniques and
parallel algorithms. Most of the models and applications from these
projects are described by systems of partial or ordinary differential
equations and their numerical solutions rely on intensive computations
that require high memory capacity and high memory bandwidth. The
shared memory computer to be purchased will serve well for these
requirements and will significantly enhance the proposers' research
capabilities.

The research projects that benefit from the new equipment range from
the very basic mathematical research such as number theory to very
practical applications such as mathematical modeling and numerical
simulations of hydrogen fuel cells that have vital national interests
(for security and environment). The proposers communicate and
collaborate on a various research subjects within the department as
well as across the university. Such collaborations provide a
stimulating environment for the training of graduate students,
postdoctoral fellows, as well as junior faculty members. The proposed
equipment will also aid existing, and provide solid computational base
for new joint projects with researchers from other sciences and
engineering